Investigating the Dallos/Evans, TWAmp, and FEM Models of Cochlear Mechanisms

9712264 Shatz The PI plans to learn more about several models of inner ear function. The aim of this research is to provide the PI with background in current models of the electromotive effects in cochlear mechanics, including the Traveling Wave amplifier (TWAmp) Dallos/Evans and finite element (FEM) models. The TW Amp models the cochlear via two coupled transmission lines. This model simulates a large range of experimental observations but needs a physiological equivalent. The FEM model fails to represent the electrical properties of the cochlear; if only models its mechanical properties. The Dallos/Evans theory purposes a mechanism by which the outer hair cells, the main transducting components of the inner ear, are stimulated via the organ of Corti. None of these models individually serves as a comprehensive representation of human cochlear function. The applicant therefore intends to study all three, with longer term goals of using the TWAmp model to test the Dallos/Evans theory, improving the FEM model to incorporate electrical mechanisms, and developing an understanding of the physiological equivalent of the TWAmp. ***